Topics in the Foundations of Mathematics

9970459
Friedman
This project will continue Friedman's work establishing the
independence from the usual axioms of mathematics (i.e.,
Zermelo-Frankel set theory with the axiom of choice) of some simple
and basic combinatorial statements. These assertions involve
sequential constructions of finite graphs and trees, where at each
stage a feature of the construction is minimized. This is in some
analogy with the so called ``greedy'' constructions in computer
science. The assertions tell us that such constructions can be
performed in such a way that the resulting object has strong and
natural combinatorial properties related to Ramsey theory (a branch of
combinatorics). These combinatorial statements are provable from
certain large cardinal assumptions, but not from the usual axioms of
mathematics. Results in this connection from prior NSF support were
used as an integral part of an undergraduate course in the computer
science department at UCSD. In addition, under prior NSF support,
Friedman has discovered a new kind of elementary constraint on
sequences from a finite alphabet. For each finite alphabet, there is a
bound on the length of any sequence satisfying this constraint. In one
letter, this longest length is 3. In two letters, this longest length
is 11. In three or more letters, this longest length is demonstrably
incomprehensibly enormous, and is closely connected to various topics
in mathematical logic and combinatorics. These topics include fast
growing functions, provably recursive functions, fragments of Peano
arithmetic, and proof theoretic ordinals. This topic was explored by
gifted high school students this past summer at the University of
Chicago, where students came up with 11 for two letters. Friedman will
continue his investigation of this and other related problems
involving such simple constraints. In this connection, Friedman has
begun a fruitful collaboration with Randy Dougherty that involves
substantial computer exploration.
Friedman has managed to establish the independence from the usual
axioms of mathematics of some remarkably concrete combinatorial statements.
These involve the construction of finite mathematical objects subject to
certain constraints. The assertions tell us that such constructions can be
performed so that the resulting object has properties of a kind that are
normally studied in combinatorics. Results in this connection from prior
NSF support were used as an integral part of an undergraduate course in
the computer science department at UCSD. In addition, under prior NSF
support, Friedman has discovered a new kind of elementary constraint
on sequences from a finite alphabet. The longest length of a sequence
subject to this constraint (for a three-letter alphabet) is
demonstrably incomprehensibly enormous, and is closely connected to
various topics in mathematical logic and combinatorics. This topic was
explored by gifted high school students during the summer of 1988 at the
University of Chicago, where students came up with the correct number
of 11 for an alphabet of two letters. Friedman will continue his
investigation of this and other related problems involving such simple
constraints. In this connection, Friedman has begun a fruitful
collaboration with Randy Dougherty that involves substantial computer
exploration.
***